Majority and Minority Influence: An Attempt at Integration

ABSTRACTS This project is designed to answer important questions that have arisen in research on minority influence. "What constitutes a minority?" "Is minority influence merely a special case of more general social influence processes?" are two such issues. Three series of studies are presented: Series I focuses on the meaning of minority, the influence of task subjectivity/objectivity, and the need for closure; Series 2 with the controversy surrounding minority influence effects on perceptual judgments; Series 3 with an extension of the initial results into the realm of persuasion, with special emphasis on source, message, and sleeper effects and the impact of cognitive load on influenceability. The research makes use of findings which suggest that people are differentially susceptible to in-group or out-group influence as a consequence of the objectivity/subjectivity of judgments. The project has the potential to clarify important issues in minority/majority influence, and to integrate past findings by highlighting the relevance of cognate theories (social comparison, social identification), whose utilization will create a more comprehensive and general model of social influence.